SGER: Effect of Breakage on Crystal Shape Distribution in a Stirred Vessel

ABSTRACT

Basic properties such as the particle shape and size distribution have significant influence on the processing of particulate in various chemical and pharmaceutical applications. For example, the shape and size distribution of crystals used in pharmaceutical tablet production have a strong influence on compaction and dissolution properties of the product. This proposal focuses on understanding and modeling the variation in the size and shape distribution due to breakage of dry crystals in various applications. The objectives of the proposal are to investigate the effect of the system operating conditions on crystal shape distribution due to breakage and to develop a novel procedure quantitatively measure changes in particle shape and size in a stirred vessel due to breakage. A stirred tank is used to obtain data for the rate of breakage in terms of various process parameters. The data is used to establish new and effective models for multidimensional population balance for the variation in size and shape distribution.